Orthogonal Groups and Quadratic Forms

This award supports research on orthogonal groups and quadratic forms. The principal investigator will examine three problems in this general area. The first is concerned with the number of generators of certain kinds which are required for the commutator subgroup of the orthogonal group. The second is concerned with Arf invariants of quadratic forms over commutative rings and the information that this invariant imparts. The third problem is to investigate the deviation between the 2-torsion in the Brauer group of a commutative ring and the subset of images of Clifford algebras. The research supported involves the theory of quadratic forms. This, in its simplest form, is the study of polynomial forms of degree two. Equivalently, it is an analysis of the types of inner products that can define the metric geometry of an n-dimensional vector space. The study of quadratic forms has deep interrelations with algebraic geometry and algebraic K-theory.